Symposium on Magnetic Field and Spin Effects in Chemistry; University of Konstanz, Konstanz, Germany; July 26-31, 1992

This grant provides funds to allow scientists from the US to attend the Symposium on Magnetic and Spin Effects in Chemistry to be held at the University of Konstanz in Germany, July 26-31, 1992. The Symposium will include presentations on magnetic field effects in solution, in the gas phase, in the solid phase, at interfaces, in supramolecular aggregates, in photosynthetic reactions and in enzymatic reactions. Other topics in the fields of chemically induced dynamic polarization and chemically induced electron polarization will be included in the five-day Symposium. The Symposium is designed to bring chemists fron a variety of different sub-disciplines together in an environment which will provide direction for future work in this rapidly developing field of chemistry. %%% The symposium will bring together chemists from a variety of subdisciplines to discuss the effects of magnetic fields on thereactivity of chemical species. In addition to demonstrating that magnetic fields have a profound effect of the reactivity of chemical processes of synthetic molecules, the prospects for influencing the reactivity and products generated in biological systems will be presented. By utilizing magnetic fields to influence the chemical consequences of a reaction, the chemist has a new tool to employ in generating useful chemical products in a controlled environment.